Algorithm Engineering for NP-Complete Problems

This project will study the impact that advanced combinatorial algorithm
techniques and data structures can have on the performance of
heuristic search, both in theory and in the context of
building a general-purpose combinatorial optimization engine.
This engine will be applied to yield quality implementations of
heuristics for twenty NP-complete problems which arise commonly in practice.
This approach focuses attention on identifying versatile high-performance
approaches to local optimization. Further, it suggests a variety of
new lines of theoretical research which will lead to improved optimization
algorithms.

The impact of this research revolves around (1) the development of new
combinatorial algorithms and data structures supporting powerful
crossover, mutation, and cycle-avoidance operations, and mapping energy
landscapes, as well as provably good approximations, (2) a systematic
study of the performance of local search variants including simulated
annealing, genetic algorithms, and tabu search, (3) the development of
useful software for research, industrial, and educational applications,
and (4) the creation of a new competitive forum for assessing the state
of the art in algorithm engineering.